LEXEN: Geomicrobiological Interactions of Microbial Communities in Cave Deep Subsurface Environments: A Novel Extreme Environment

9809096
Dahm

Caves offer accessible subterranean environments in which to study the
diversity of microbial life. These ecosystems are exposed to extreme
environmental stresses and may be based on inorganic energy sources rather than sunlight. An excellent example of subterranean microbial life is found in Lechuguilla Cave (New Mexico), the deepest cave in the
continental United States. Lechuguilla Cave, an immense, ancient cave
in near pristine condition, contains sulfur, iron, and manganese deposits and extremely low nutrient environments harboring diverse microbial life. The carbonate wallrock and overlying corroded limestone provide an excellent model for studying how life has survived, adapted, and altered this rock environment. Preliminary evidence suggests that the diverse community of microorganisms inhabiting corrosion residues includes fungi and bacteria that live by using manganese and iron. We will investigate the nature of the unusual microorganisms present, the means by which they adapt to their extreme environment, the energy sources that they use, and the overall level of biological activity of the communities. Because of the potential for subsurface life on other planets and possible chemical similarity to Lechuguilla Cave, our research will also explore the relevance of cave communities to those that may exist elsewhere.